Algebraic Reasoning for Probabilistic and Real-Time Concurrent Systems

Real-life processes behave probabilistically and execute in real- time. This project will develop process algebra-based techniques and software tools for reasoning about probabilistic and real-time aspects of concurrent systems. o Testing Preorders for Probabilistic Processes - Testing preorders for probabilistic processes based on the natural notion of a process passing a test with a certain probability will be extended , and o Axiomatizing Probabilistic Processes - An extension of the process algebra ACP to the probabilistic setting constitutes a complete axiomatization of probabilistic bisimulation for finite process. Work will continue by considering recursion in the language, a weak version of probabilistic bisimulation in which internal actions are abstracted away, and the stratified model of probabilistic processes. o Integrated Models of Probabilistic and Real-Time Processes - The research will follow a dual approach to developing techniques for analyzing probabilistic and real-time systems by introducing time, in an integrated manner, into probabilistic testing preorders and into probabilistic extension of ACP. A major outgrowth will be a suite of design tools for analyzing algebraically the reliability and performance of systems. One can use this design environment to apply the methodology to substantive realistic examples, such as communication protocols and distributed resource allocation algorithms.